Attendee Support for the 2020 AAAI Doctorial Consortium

This grant supports to student travel for select students participating in 25th AAAI/SIGAI Doctoral Consortium (DC), which will be held on February 7-8, 2020, in New York, New York. This activity will bring together a broad community of researchers in the field of AI, and support junior researchers at this critical early-career stage. The DC creates the opportunity to bring in participants who might not have attended an AI conference due to lack of resources. This is especially true for those at smaller institutions and those which have less developed AI programs. Engaging such participants has the potential to draw more talent into AI research, improve research ideas in their formative stage, and engender collaborations across the breadth of disciplines. This event provides students with invaluable exposure to outside perspectives on their work at a critical time in their research and also enables them to explore their career objectives.